Cosmic Velocity Observations and Analysis

Willick, Jeffrey 96-17188 Dr. Willick will conduct research on the subject of large-scale deviations from uniform Hubble expansion. These peculiar velocities are thought to be due to anisotropic gravitational forces that arise as matter in the universe becomes increasingly clustered over time. Thus, they can be used to test models of the formation of large- scale structure. Coherent peculiar motions over volumes many tens of megaparsecs in diameter are indicative of mass density fluctuations over comparable or larger scales. These mass fluctuations must be shown to be consistent with angular fluctuations in the Cosmic Microwave Background radiation if the standard Big Bang model is to remain internally consistent. The peculiar velocity field within the local universe can be mapped in sufficient detail to compare with theoretical predictions based on redshift survey data and thus provide strong constraints on the cosmological density parameter.